Future Directions For X.500

ABSTRACT: "Future of X.500 Study," University of Southern California, PI: Herbert Schorr: This award covers coordination of a mailing list on the Internet and conduct of a meeting to consider the viability of the X.500 directory as a practical approach to providing white pages service for the Internet in the future. The awardee is responsible for writing a report on the outcome of the discussion and the meeting. The report covers: 1) the functions the directory service should provide; 2) the alternative approaches to providing those functions; 3) identification of the issues to be resolved; and 4) a proposed deployment strategy. ************************************************************************** David Staudt
Division of Networking and Communications Research & Infrastructure
National Science Foundation